Acquisition of Instrumentation for Testing of Ultra-WidebandWireless and Wired Communications and Design of Enabling Instruments

9601804 Scholtz, Robert A. Choma, John J. University of Southern California Academic Research Infrastructure: Acquisition of Instrumentation for Testing of Ultra-Wideband Wireless and Wired Communications and Design of Enabling Instruments This Academic Research Infrastructure award supports the acquisition of very high speed analysis and test equipment for research on high speed communication networks. The research projects supported by the equipment are: 1. The design and implementation of ultra-wideband wireless and wired computer network systems. 2. An experimental research project on the design of an impulse radio wireless network for Ghz bandwidth base stations. 3. A research program in ultra high-speed circuit and test fixturing.